Neighborhood Education Watch: Creating Parent Advocates and Leaders (NEWPALS) for Quality Science, Mathematics and Technology Education

9901239
PARKER

The Quality Education for Minorities (QEM) Network requests $1,518,318 to develop and pilot, in ten low-income communities, a two-pronged initiative for providing professional development for parents to be stronger advocates for their children in science, mathematics and technology. The objectives for this project are to prepare a cadre of parents (or parent surrogates) at each of ten pilot sites to advocate for a stronger participation in quality science, mathematics, and technology education for their own and other children; to establish an information and support network from which parents can retrieve educational resources via QEM's Website, an 800-telephone number, fax, and e-mail, and regular postal service.

The pilot sites are Lowndes County, AL; targeted communities in Cleveland and Florence, SC; seven public housing communities in Atlanta, GA, Baltimore, MD, Chicago, IL, New York (Brooklyn and Jamaica), Norfolk, VA, and Tallahassee, FL. The Community Service Centers (CSC's) established on neighboring college campuses serve the seven public housing communities with support from the Annie E. Casey Foundation, with technical assistance provided by the QEM Network. The participating neighboring colleges are Clark-Atlanta University, Morgan State University, Chicago State University, New York City Technical College, York College, Norfolk State University, and Florida A&M University.